Narrow-Linewidth, Multiple-Wavelength, Simultaneous-Emission Laser Diodes for Remote Optical Sensing and Other Applications

The proposal describes a program to develop multiwavelength, simultaneous emission lasers based on ridge-waveguide distributed Bragg reflector semiconductor laser. The specific example of an application that defines the need of such lasers is the differential absorption remote optical sensing of water vapor. A multiwavelength source with closely spaced narrow laser lines would be useful to obtain the detailed absorption profile without having to turn the laser on and off the absorption peak as is practiced currently. This program is aimed to study and develop a simple multiple wavelength source suitable for these types of applications.